Mathematical Sciences: Problems in the Theory of Operator Algebras

9500308 Voiculescu Free independence , the noncommutative independence based on free products instead of tensor products and the corresponding free probability theory will be used to study the type II factors of free groups . This will especially involve free entropy, free harmonic analysis and asymptotic random matrix models. Other problems considered , will be in the hyperfinite context and will be about the approximation approach to dynamical entropy (as a non-commutative substitute for Mc Millans theorem ) and the role of the Macaev ideal in the connection between entropy and perturbations of operators . Operators are infinite dimensional generalizations of matrices. There is a natural multiplication and addition of operators and, consequently, some collections of operators can be considered as mathematical structures called operator algebras. This project involves the interface between these non-commutative operator algebras and concepts from an emerging field of non-commutative probability theory. Further connections between operator algebras and invariants that arise in dynamical systems will be investigated. ***